CAREER: Holomorphic Curves in Algebraic Geometry and Symplectic Topology

Abstract

Award: DMS-0846978
Principal Investigator: Aleksey Zinger

The invention of pseudo-holomorphic curves techniques in the
1980s revolutionized symplectic topology, profoundly impacted
algebraic geometry, and led to astounding connections with string
theory. This project has three distinct directions, motivated by
this interplay between different fields. The primary one is a
detailed study of deformations of such curves, for arbitrary as
well as generic complex structures. It aims at the fundamental
understanding of properties of pseudo-holomorphic curves,
including Gromov-Witten invariants (counts of such curves) and
more qualititative aspects of their behavior (e.g. existence,
uniruledness, etc.). The aim of another direction is to apply
techniques employed in the PI's proof of the string theory
prediction for the genus 1 GW-invariants of a quintic threefold
in many other setting, testing additional mirror predictions and
going beyond them. The third direction would further develop the
PI's local excess intersection approach and its applications to
classical enumerative geometry.

String theory is a physical model that represents elementary
particles by vibrating strings with the aim of unifying the four
fundamental forces of nature. As such srings move in space, they
sweep out Riemann surfaces, also called holomorphic curves. While
string theory is one of the main paradigms in physics today, it
has yet to make any experimentally testable predictions. However,
it has generated plenty of mathematical predictions and led to
fundamental developments in symplectic topology and algebraic
geometry, especially in relation to (pseudo-) holomorphic
curves. This proposal aims to further test string theory
mathematically, while deepening the mathematical understanding of
such curves with an eye toward applications to more classical
problems in geometry. Some of the projects in this proposal will
pursued by graduate students under the PI's supervision.

This award is jointly supported by the programs in Geometric Analysis and in Algebra, Number Theory, and Combinatorics.